Testing Complex Systems with Reusable Tests

Hayes This research deals with obtaining a fundamental understanding of how to use hierarchy effectively in testing (as it is used in design). The three integrated components of the research are: 1. how to design and control propagation of precomputed test stimuli to each module of the circuit from the circuit inputs and propagation of responses from the module to the circuit outputs; 2. development of test-preserving transformations of circuits which allow a circuit design to be changed during synthesis while preserving the fault coverage powers of a known or transformed test set; and 3. finding methods for designing built-in-self-testing circuits to provide localized input stimuli generation and response analysis for modules. Theorems and algorithms are being developed.